Teaching the Materials Science, Engineering, and Field Aspects of Concrete

This two-part project, organized by the NSF Center for Science and Technology of Advanced Cement-Based Materials, is targeted for two- and four-year college faculty to enhance their capabilities to teach an interdisciplinary materials science approach in concrete materials to civil engineering undergraduate students. Part I is a five-day workshop integrating the materials science, engineering, and laboratory and field aspects of concrete; Part II will provide a two-day conference to assess the impact of the teaching program on the participants and their students, and examine future educational initiatives.